A Specification and Validation Environment for Distributed Coordination Algorithms

Software environments to aid in the prototyping of protocols and distributed algorithms are increasingly important as networking expands. Powerful techniques for specification and validation are needed. A prototyping environment called SPANNER, based on a coupled finite state machine model, was shown to be useful for precisely specifying and validating small coordination problems. This award explores the development of a more powerful development environment by extending the specification capabilities of the SPANNER system and by implementing a distributed version of the enhanced system. The specification capabilities are being enhanced by allowing dynamic activation of modules, constraint-based specifications, and multiple time bases. The goal is to continue to be able to validate such specifications for safety and liveness properties. The distributed implementation is designed to be able to validate larger and more complex protocols in a shorter amount of time. The ideas being developed and tested during the course of this work should be of use to prototyping environments developed by other researchers.